Dissertation Research: The Effects of Water Scarcity on Reciprocity and Sociability in Bolivia

Reports on the state of freshwater reserves warn that severe local shortages
are imminent, and predict that violent conflicts will emerge in water-scarce
regions around the world. Water scarcity has been shown to cause civil
conflict, particularly when accompanied by high population density, poverty,
and income inequality. Urban migrant communities, where ethnic, religious,
and class differences can exacerbate tensions, and community-wide patterns
of adaptation to environmental scarcities are not well-formed, may be
particularly vulnerable to water conflicts. To better understand how
conflicts develop in water-scarce regions, a PhD student of cultural
anthropology will sample 60 households in Villa Israel, a barrio of
Cochabamba, Bolivia, where conflict over water is an established part of
life. Every winter, seasonal water shortages threaten the lives of the
people of Villa Israel, forcing them to make choices in how they use their
economic and social resources. Using a combination of formal and informal
interviews, participant observation, and archival research, the student will
determine if and how cooperative economic and social ties break down during
the dry season, facilitating the emergence of conflicts.

Broader implications: In addition to contributing to the education of a
doctoral student and a Bolivian undergraduate, the study has practical
applications for those seeking to anticipate and manage coming conflicts
over scarce freshwater. By determining when and how social ties become
vulnerable during periods of severe water scarcity, the research will point
policymakers and development planners to possible avenues for conflict
prevention in marginal urban communities.